Engineering Creativity Award: Estimation of the Behavior of Organic Pollutants in the Environment

this research project is devised to produce a convenient and reliable tool for estimating the behavior of organic pollutants in the environment. The objectives of the research are: (1) to develop state-of-the-art knowledge of quantitative structure activity relationship (QSAR) research, (2) to construct a QSAR which predicts soil sorption of organic compounds for various soil types, and (3) to design an expert system which can be used by environment engineers to predict the behavior of organic pollutants in the environment. After completion of the literature search, a QSAR soil sorption relationship for organic compounds which also includes soil descriptors such as porosity, permeability, gradation analysis and organic content will be determined. Connectivity indices will be calculated for the compounds and any relationship between the indices, soil parameters, and soil sorption will be investigated. All pertinent QSAR relationships will be organized in a computerized expert system so that the information already accumulated will be easily accessed. The expert system will provide information using chemical structure and/or chemical name as the only input.